Mathematical Sciences: Exact Penalty Functions in Constrained Optimization

This project is directed at the development of robust trust region methods for the solution of constrained nonlinear optimization problems. Problems of particular concern include a robust global convergence theory, the characterization of algorithms that identify the optimal active constraints in a finite number of iterations, second order correction methods and a mathematical theory for parallel techniques of computation.